Engineering Research Center for Advanced Technology for Large Structural Systems

Lehigh University will establish an Engineering Research Center on Advanced Technology for Large Structural Systems. The goal of the Center is to advance the fundamental engineering knowledge base for new technologies in the structure-related industries. Multidisciplinary research thrusts will be in: (1) new and better design concepts integrated with fabrication and operation; (2) powerful, new computer-based tools developed and utilized in design, fabrication, and life-cycle monitoring; (3) higher strength, higher value-added materials; (4) robotics and automation integrated in the fabrication and construction; and (5) new sensors, coatings, and protective systems. Engineering education in large structural systems will be emphasized at both the undergraduate and graduate levels. New multi-disciplinary graduate courses to be developed will be team taught and will be required of all graduate students associated with the Center. Other institutions expected to participate are Bucknell University, Lafayette College, and Villanova University.